Purchase of a 400 MHz NMR Spectrometer

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at Brandeis University to acquire a 400 MHz NMR Spectrometer. This equipment will enhance research in a number of areas including the following: (1) rational design of enzyme inhibitors and studies of enzyme mechanisms, (2) synthesis and mechanistic studies of biologically active natural products, (3) structure/function studies of trypsin and mechanistic studies of inosine monophosphate dehydrogenase, (4) short syntheses of major natural products and development of new synthetic reactions, (5) protein dynamics by NMR and ion pair structure and dynamics, and (6) total synthesis of biologically active natural products. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.